Template Oligomerization for the Replication of Precisely
Defined Synthetic Macromolecules

The focus of this research is the use of precisely defined templates for the production of organic oligomers of precise molecular weight and constitution. Rigid-rod oligomer templates will be used for the rapid construction of oligomers having the same length as the templates. Monomers will be attached to the templates via covalent bonds, then oligomerization will be chemically induced to afford a supramolecular parent-daughter duplex. Cleavage of the parent-daughter duplex would produce a daughter oligomer that retains the specific length information of the parent template. Methods are proposed to reuse the parent template and the daughter as a new template, thus making the entire process catalytic in template, and ultimately similar to the polymerase chain reaction (PCR) in its productive capabilities. The project could significantly simplify the preparation of precisely defined macromolecular architectures which are currently prepared only by laborious step-wise procedures or multiple analytical separations. With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. James M. Tour of the Department of Chemistry and Biochemistry at the University of South Carolina. Professor Tour will focus his work on developing new routes for the facile construction of organic oligomers of precise molecular weight and constitution. These precise macromolecular systems are becoming important for electronics, photonics, molecular electronics, catalysis, separation science, nano-engineering, and nano-bioengineering